Mathematical Sciences: Kinematics and Dynamics of Nearly Perfect Fluids

This is a proposal to employ ideas from fast dynamo theory that deal in particular with the advection and diffusion of a magnetic field in a conducting fluid of small resistivity to the study of fluids of small viscosity. One of the goals of the present research is to analyze the evolution of vorticity from smooth initial conditions by a combined analytical and numerical solution of the Navier-Stokes equations in the limit of vanishing viscosity. Another goal is to understand the structure of small- scale turbulence with the aid of vortex models. Many physical phenomena involve the flow of slightly viscous liquids at very large speeds. These are usually very complicated problems to study in a straightforward way, even with the help of today's powerful computers. In this proposal the principal investigator will use methods from dynamo theory (essentially the theory of spinning magnets) to study flows of liquids. This may seem odd, but it turns out that the streamlines of a flowing liquid behave very much like the magnetic lines of force of a moving magnet under certain circumstances, and this similarity can be used to great advantage.